Learning Optics on the Web: 3D Interactive Graphics, Session Logging, and Collaboration

The goal of this project is to help students learn about optics in
freshman/sophomore physics courses and in upper level physics courses. We
will produce a prototypic set of educational materials: a Web-based, 3D
interactive computer graphics system with session logging capabilities.
We will also investigate the possibility of giving the system
collaborative capabilities.

We have previously developed a 3D interactive computer graphics system
called The Optics Project (TOP). TOP has been tested in the classroom at
two universities, and received excellent student evaluations. We now know
how to port TOP to the Web, making it available for students with PC's.
For example, a student can point his/her browser at a URL (such as
http://www.erc.msstate.edu/~foley/webtop/ ) and select the single slit
submodule; the browser then loads the 3D environment in which the student
can change the width of a slit and see the diffraction pattern on an
observation screen change.

Our objectives are as follows. (1) Make Web versions of the seven TOP
modules. We call this Web version WebTOP. (2) Create a new Lasers
module. (3) Enable the automatic generation of session logs that can be
replayed, edited, and analyzed. (4) Investigate the possibility of giving
the system collaborative capabilities. In addition to developing the
software, we plan to aggressively disseminate and evaluate it. We will
continue to give presentations at regional and national meetings, as we
did for TOP. As each new WebTOP module is completed, we will put it on
our server, so that others may begin using it. We will hold workshops to
show others how to use WebTOP. We will coordinate with other universities
and colleges who use WebTOP and travel, when possible, to help them get
started, as we did with TOP.

At the end of the two years, we expect the outcomes to be: (a) an
interactive computer graphics system which runs on the Web and has session
logging capabilities, and (b) a large and growing set of university users
which will use the software. The DUE theme that applies to this project
is